Mathematical Sciences: Feature Detection and Representation of Faces Using Deformable Templates

This one-year grant will permit Dr. Yuille and one student to extend their preliminary work in representation and visual recognition of human faces. Their current system can locate strong features such as eyes and mouths by using parametric adaptation of deformable templates. They are now applying robust statistical methods to identification of partially occluded or unresolved features, and will also study pyramid algorithms for matching a global face template. The goal is robust face recognition in the presence of noise and distractions.